Stereo- and Enantioselective Synthesis with Fluorinated Reagents

The research of John Welch is supported by the Synthetic Organic Chemistry Program. Welch, associate professor of chemistry, is studying new ways to make organic compounds that contain fluorine. His approach is characterized by the goal to prepare small, simple molecules that contain fluorine that also have the unique ability to be readily incorporated into larger, more complex molecules. Welch is also developing methods by which chiral fluorine containing molecules can be prepared. General methods for the diastereo- and enantioselective synthesis of monofluorinated materials by using simple, inexpensive, achiral monofluorinated compounds will be developed. Asymmetry and functionality are introduced using the carbon-carbon bond forming reactions or rearrangements of these fluorinated building blocks. The fundamental utility of ı3,3!-sigmatropic rearrangements of fluorinated ketene acetals will be explored. Novel new chemistry of fluorinated enamines will be investigated as means to prepare allyated fluorinated ketones. Organometallic chemistry of chromium fluorinated carbene complexes as a means to prepare fluorinated lactams will be examined.